Americas Program: Cooperative Research on the Seismic and Geodetic Behavior of Arenal Volcano, Costa Rica

; R o o t E n t r y F NU @ C o m p O b j b W o r d D o c u m e n t # O b j e c t P o o l NU NU 4 @ " # $ % & ' ( ) * + , F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; ; H * T d d d d ?Tu( e f d d d d Zw, S9507828 Schwartz This Americas Program award will support a research collaboration between Dr. Susan Schwartz, University of California Santa Cruz, and Dr. Marino Protti, Universidad Nacional , Costa Rica. They propose to install a continuously operating broadband seismic and space-based geodetic monitoring system on Volcan Arenal, an active volcano in north-central Costa Rica. Their goal is to use the data collected to gain a better understanding of volcanic processes, such as magma conduit initiation and magma transport, and to integrate this knowledge with observations of precursory deformation, leading to improvements in volcano eruption forecasting. Only a few volcanoes world-wide are presently being monitored with geodetic instrumentation. In almost all of these, measurements are made too infrequently, or the land-based techniques are too imprecise to define the time-varying signal associated with volcanic deformation. The researchers will remove these limitations by installing a continuously operating monitoring system . This information will be beneficial not only to the two parti cipating countries, but also to other countries with active volcanoes. *** Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9507828 Beverly D. Diaz Beverly D. Diaz @ UrS @ 5 S u m m a r y I n f o r m a t i o n ( ! @ 5 @ d Microsoft Word 6.0 6 ; e = e # p p p p p p p Q E 3 T 9 Q p Q p p p p p p p p , 9507828 Schwartz This Americas Program award will support a research collaboration between Dr. Susan Schwartz, University of California Santa Cruz, and Dr. Marino Protti, Universidad Nacional , Costa Rica. They propose to install a continuously operating broadband seismic and space-based geodetic monitoring system on Volcan Arenal, an active volcano in north-central Costa Rica. Their goal is to use the data collected to gain a better understanding of volcanic processes, such as magma conduit initiation and magma transport, and to integrate this knowledge with observations of precursory deformation, leading to improvements in volcano eruption forecasting. Only a few volcanoes world-wide are presently being monitored with geodetic instrumentation. In almost all of these, measurements are made too infrequently, or the land-based techniques are too imprecise to define the time-varying signal associated with volcanic deformation. The researchers will remove these limitations by installing a continuously operating monitoring system . This information will be beneficial not only to the two participating countries, but also to other countries with active volcanoes. ***